U.S.-RUSSIA WORKSHOP: STEP Electrodynamics and Composition of the Mesosphere (March 1992; Nizhny Novgorod, Russia)

This workshop on Solar Terrestrial Energy Program's (STEP) Electrodynamics and Composition of the Mesosphere coordinated by Drs. Robert Holzman of the University of Washington-Seattle and A. M. Feigin, Institute of Applied Physics, Nizhny, Novgorod, Russia will be held at the Institute in Nizhny in March 1992. The Upper Atmospheric Research Section at the NSF is committed to cooperation with the international STEP program and through its support of scientists in related research activities plays a central intellectual role in meeting STEP objectives. In particular the objectives relating to the composition of the mesosphere and the electrodynamics of the atmosphere are ones that have received strong recent emphasis and in which very significant recent progress has been made. The items to be discussed include preliminary results of NCL-91 compain; relation between electrodynamics and chemistry of the D-region; polar mesospheric clouds (PMSC), relation between NCL and PMSC, mesospheric electrodynamics and global electricity, and electrodynamics and minor constituents. This project fulfills the program objective of advancing scientific knowledge by enabling leading researchers in the United States and Russia to combine complementary efforts and capabilities in areas of strong mutual interest and competence in the field of basic scientific research on the basis of equality, reciprocity, and mutuality of benefit.